Mathematical Sciences: Advanced Training in Modern Analysis

This award, made under the Mathematical Sciences Research Groups initiative, is for the collaborative support of graduate students and postdoctoral associates working with the group of modern analysts at Berkeley. Research specialties represented include operator algebras, representation theory for Lie groups, and ergodic theory.